Petrographic and Geochemical Study of Mid-Cretaceous Plutonsof the Coast Crystalline Orogen, Southeast Alaska

This project will use a combination of methods to study igneous plutons intrusive into the deep crust of southeastern Alaska and British Columbia. This area is the site of convergence between the Pacific and N. American tectonic plates, and the country rocks in which the plutons occur were deformed and metamorphosed during the prolonged convergence. The plutonic rocks will be studied to determine their post-emplacement history interms of pressure (depth) and temperature as a function of time. This latter information will help constrain the deformation and uplift history of the entire coast plutonic complex.